Analysis of Existing Full-Scale Pressure and Deflection Datafrom a Tall Building in Boston, MA

From February 1973 to December 1976 a tall building in Boston was instrumented with up to 140 transducers, and more than 20,000 hours of reliable data was recorded. The data includes measurements of wind velocity, facade pressure and deflection, and building motion. This was one of the most extensive onsite studies ever carried out on a single building. The present work will use the above mentioned body of accumulated raw data and in a one-year period will sort, codify, document, and validate it. The resulting report will be made available to the wind engineering and scientific community and the P.I. will send to NSF twenty copies of the final report for further dissemination. The P.I. is highly qualified to perform this project. A one-year award is recommended in which only the described task will be carried out.